CEDAR: Multi-instrumented Studies of Equatorial Thermosphere Aeronomy (MISETA): Fabry Perot Measurements at Arequipa, Peru

This MISETA proposal will measure the zonal drift of kilometer scale irregularities and all sky airglow surface brightnesses in addition to upgrading the Fabry Perot interferometer. The PIs also plan to compare MISETA observations and predicitons from the current NCAR-TIGCM model. The project will focus on the modification of the Fabry Perot to enable mesospheric dynamics studies through the doppler measurements of mesospheric airglow emissions in addition to the 630 nm measurements.